Historical Phylogeny of Tahitian Partula, an Almost Extirpated Land Snail Fauna

Oceanic islands hold particular interest for both evolutionary and
conservation biologists. Native plants and animals evolved in isolation on
these islands and provide detailed insights into fundamental evolutionary
processes. However, they characteristically lack well-developed defensive
mechanisms and are exceptionally vulnerable to introduced predators. Using
DNA analyses of museum specimens, we aim to reconstruct the evolutionary
history of a critically threatened radiation of land snails from Tahiti
(French Polynesia). This Pacific island snail fauna has recently been
driven to the brink of extinction by an introduced predatory land
snail. Our museum samples predate the introduction of the predator and, in
their DNA, they collectively contain a genealogical record that we can use
to revise the traditional shell-based taxonomy and to determine how all
these snails evolved on such a small, geologically young, island.

Our research will have practical value in helping to prioritize on-going
conservation and rehabilitation efforts. Collaborative agreements have
been established with Zoological Society of London personnel involved in
overseeing captive Tahitian snail zoo populations and in saving the last
remnant wild populations. Our shared aim is to place the remnant wild and
captive populations into their proper evolutionary context: that of the
previously intact fauna, by obtaining DNA profiles of extant wild and
captive populations that will be referenced with our historical Tahitian
database. Preliminary efforts have received considerable general publicity
(e.g., http://whyfiles.org/shorties/151land_snail/index.html). We
anticipate that our research will be of interest to that fraction of the
public keen on high-profile conservation biology issues.